Mathematical Physics

This project in mathematical physics concerns quantum field theory, modern analysis and probability theory. It focusses on the analytic methods of constructive field theory and applications to statistical mechanics, global analysis, representation theory and properties of operators in infinite dimensions. Quantum field theories are fundamental to the understanding of basic physical phenomena. This work deals with the mathematical foundations of such theories.